REU Site: Chemistry as the Focus of an Interdisciplinary Summer Research Program at Wellesley College

This Chemistry Division award is a continuation of a Research Experiences for Undergraduates (REU) site at Wellesley College. Chris Arumainayagam and David R. Haines share duties as the site's Program Director. Over the award period (2001-2003) they will oversee a program of interdisciplinary research between chemistry and other departments, particularly biological sciences, physics, computer sciences, environmental science, and the social sciences. A new aspect of the program is the inclusion of physics faculty and students in the research efforts. Approximately 25 chemistry and physics students will participate in the ten-week summer research program each year, with ten of those students supported by this award and the remainder by the College and other funding sources. Five of the ten participants will be selected primarily from institutions with limited research opportunities. The site encourages the participation of women and students from other underrepresented groups. The students will conclude their experience with a campus-wide poster session.